Case Studies on Transfer of Biotechnology to Third World Countries

A central focus for studies in science, technology and society is the development and management of complex technologies. These efforts raise correspondingly complex ethical and value concerns which must be confronted and reconciled in the process. This project addresses key value issues in the transfer of biotechnology to developing countries. The research team -- composed of U.S. researchers and cooperating scientists from the developing countries -- will conduct a detailed analysis of two cases involving research, development and production of vaccines in these countries. Researchers will use interviews, study of documents, and observation, to examine whether these projects provide examples of viable ways to foster the development of independent biotechnology industries in developing countries and what value considerations enter into the decisions to undertake and manage them. An Advisory Committee will provide project oversight and review. Products are expected to include monographs and articles, two masters' theses, sessions at meetings of relevant professional societies and at international conferences, and teaching modules and design exercises for use here and overseas. This project addresses an important issue in a unique interdisciplinary manner. The research team, consultants, and advisors represent an appropriate mix of disciplines and are uniquely qualified to collaborate. Further effort is likely to continue beyond the duration of this award. The project is designed well; university support is good. An award in the amount of $100,267 is therefore recommended.